Models of Socioeconomic Organization

9409090 Rosenthal This research will focus on three related topics. In the first project, game-thoeretic models are developed which focus on incentive schemes to implement desirable public good allocations in situations where information is incomplete for some social groups. In the second project, models are developed which deal with the interacting dynamics between two social groups. The goal is to explore under what conditions would opportunism drives out cooperation if individual members of one group behave in an opportunistic manner against the individuals of the other group. The third project develops models of communication and coordination. The aim is to assess the effects of lags in the flow of economic information across groups in the absence of market price signals. The study is of significant interest because it would enrich our understanding of how society is organized and the different ways individual behavior respond to that organization.